THE DR. FAD SHOW

THE DR. FAD SHOW is a daily television series for children ages 6 to 12 that encourages creativity, inventiveness and problem solving in a lively half-hour format. Each program is taped before a studio audience and high-lights the inventions of young participants as well as the fads and inventions of the past, present and future. Created and hosted by Ken Hakuta, or Dr. Fad as he is known to millions of young viewers, the series will combine thirty-five brand new shows with thirty previously produced episodes for a total of sixty-five programs. The series will be produced and packaged next spring and summer at WETA-TV in Washington, D.C. and will be ready for national broadcast on the Public Broadcasting Service (PBS) as early as fall of 1991. THE DR. FAD SHOW will be accompanied by a significant outreach and promotion effort, as well as an educational component that will include an activity and teacher's guide. The programs have already won the endorsement of the National Education Association and the National Inventive Teaching Association (NITA) among others, as well as the enthusiastic support of parents, teachers and a legion of dedicated young viewers and participants.